Conference on Brain-Gut Peptides and Reproductive Hormone Secretion; Pullman, Washington

Travel funds are provided to bring a group of 12 distinguished lecturers to a meeting on "Brain.gut Peptide Regulation of Reproductive Hormone Secretion" to be held at Washington State University in Pullman, Washington. The meeting involves approximately 150 participants representing a large geographical distribution. The renowned lecturer will present a summary of recent advances concerning their particular peptide area emphasizing its role in the regulation of reproductive neuroendocrine function. The objective is to integrate the presentations to formulate hypotheses about the sites and mechanisms of action/interactions of these neuropeptides in carrying out their regulatory action. The results and discussion will provide important information concerning the central mechanisms of neuroendocrine regulation and will define clear directions for future research in this area. This valuable information could lead towards the development of novel therapeutic regimens for treating clinical reproductive dysfunctions associated with aberrant reproductive hormone secretion. The proceedings from the meeting will be published in a book. ***